CETP Core Evaluation

The project is developing a core data collection and reporting system for the NSF Collaboratives for Excellence in Teacher Preparation program. the development is in three phases: year one, focuses on consensus building, and device and process development and pilot testing; the second phase concentrates on field testing and evaluation of devices and processes; and the third phase concentrates on scaling up the process. The project builds on prior work with the CETPs, Horizon Research's Local Systemic Change data collection mechanisms (participially its web based design) the experience of current CETP site evaluators. The web based data collection, enables data input from many remote sites into a common data base, accessible for the development of reports containing data from all sites overall as well as for reports containing data from individual sites. The database is compatible with existing NSF databases, as appropriate and provides impact information in a standardized and easily accessible format.